Integrating Computer Software into Lower Division Engineering and Engineering Technology Courses

Prince George's Community College, Largo, MD (PGCC) will hold a five-day workshop in summer 1995, Integrating Computer Software into Lower Division Engineering and Engineering Technology Courses. The workshop will be for 20 faculty from engineering, engineering technology, and science, who teach lower division courses in community colleges and senior institutions in the middle Atlantic states. The workshop will include lecture/demonstration, visualization activities, and computer work with Math CAD, MicroCAP, LogicWorks, and PADS. Each participant will bring three problems from three different courses to the workshop. These will be solved during the workshop and developed into a "book" of practice problems and solutions which will be given each participant. Applications will be shown to Statics, Dynamics, Strength of Materials, Thermodynamics, Electronics, and Physics Courses. Workshop participants will also be introduced to Internet and its uses and to the work of the NSF Engineering Coalition, Engineering Coalition of Schools for Excellence in Education and Leadership (ECSEL). Follow-up activities include the development by PGCC of a computer bulletin board to allow workshop faculty and other faculty in their home institutions to communicate and assist one another, presentations by workshop participants in their home institutions, and presentations and papers for professional meetings.